Videocases for Science Teaching Analysis Plus (ViSTA Plus): Efficacy of a Videocase-based, Analysis-of-Practice Teacher Preparation Program

Prior studies have demonstrated the positive impact of content-specific videocases of other teachers' practice on science content knowledge and ability to analyze teaching when the videocases are incorporated in the methods courses for preservice teachers. Similar outcomes occurred for experienced, inservice teachers in a year-long professional development that included analyzing video of their own and others' teaching, and these teachers changed their practice in ways that influenced students' science learning. The new ViSTA Plus study explores implementation of a 2-year program for preservice/beginning teachers that is fully centered on learning from an analysis-of-practice perspective, addressing the central research question of "What is the value of a videocase-based, analysis-of-practice approach to elementary science teacher preparation?"

ViSTA Plus presents a distinctive version of practice-based teacher education, one that immerses teachers into practice via scaffolded, collaborative analyses of videocases - starting with analysis of other teachers' videocases and moving to collaborative analysis of teachers' own videocases. The ViSTA Plus conceptual framework supports teachers in using Student Thinking and Science Content Storyline Lenses to analyze science teaching and in using a set of teaching strategies that support use of each of these lenses in their planning and teaching. Through this analysis work, teachers deepen their science content knowledge, develop the ability to analyze teaching and learning, and improve their teaching and their students' learning. The current study incorporates a quasi-experimental design to compare the impact of the ViSTA Plus program to that of traditional teacher preparation programs when implemented at universities that serve diverse populations, especially Native American, Hispanic, and low-SES students. Teacher measures are assessing science content knowledge (pre, mid, and posttests), ability to analyze science teaching and learning (pre, mid, and post video analysis tasks), and teaching practice (videorecorded lessons during student teaching and first year of teaching). Elementary students' science achievement is being assessed using pre-post unit tests during student teaching and the first year of teaching.

The study design addresses a gap in the research on preservice teacher preparation by following the pathway of program influence from teacher learning to teaching practice to student learning, and accomplishes this in the context of ViSTA Plus, an alternative, practice-based approach to teacher preparation that embeds all phases of teacher learning in practice from the beginning. Partner universities in this effort are eager to reimagine the traditional teacher preparation sequence, offering new models for the field. The project is producing science-specific, analysis-of-practice materials (videocases, methods course guides, study group guides) to support the professional development of teacher educators and professional development leaders using the ViSTA Plus program at universities and in district-based induction programs.